MRIA: Complete Testability with Partial Scan

This research is on the use of partial scan for system test. The goal is to find solutions that do not sacrifice fault coverage. The main problem addressed is: given a sequential circuit, find the minimal set of flip-flops that are to be included in the scan chain while maintaining complete or 100% fault coverage. The approach is to define a metric, "profit", for a particular scan chain configuration. This metric is equal to the probability that the required states for testing the target faults will be obtained using deterministic test generation techniques. Various optimization techniques are being used to find the scan chain configuration that has large profit. Algorithms for using this technique are being developed into a test tool.